Technical Sciences Academy Proposal

9454651 Jones This project is designed to create a Technical Science Academy as a division within the Amarillo Scientific Arts Academy. The Academy serves secondary and post-secondary students from Amarillo and the surrounding area through state-of-the-art curricula and laboratories in mathematics, science and technology. The project is designed to provide a hands-on curricula for majors in Electronics Engineering Technology and Hazardous Materials Technology. The project implements a seamless educational strand which removes barriers between secondary and post-secondary levels. Team teaching, proficiency based curricula and cooperative learning are the major emphasis of the project, as well as the implementation of internships, cooperatives and interactions with industrial partners for faculty and students. The project is designed to appeal to underrepresented groups including women and minorities. This project grew out of a committee effort which brought together educators and business/industry leaders to generate realistic ways to address the national education goals in Amarillo Texas.